Dissertation Research: Regulation of Sphagnum Decay in Raised Peatlands

Peatlands are large accumulations of the partially decomposed litter of the bog moss Sphagnum. These wetlands ecosystems cover about 400 million ha and represent a significant carbon reserve. Previously waterlogging has been implicated as the primary cause for the slow decay. However, most decay takes place while the peat is still aerated and therefore waterlogging is no longer a valid explanation for the slow decay in these ecosystems. Intrinsic properties of the Sphagnum litter have been virtually overlooked but could be a critical factor in the regulation of decay. This study will address the issue of decay limitation by intrinsic qualities of Sphagnum litter versus environmental constraints of the raised bog habitat? This research will attempt to decouple these factors by employing reciprocal litterbag transplants of Sphagnum mosses complemented with laboratory respirometer studies. By identifying the ratelimiting factor, these results could have predictive value for determining the effects of widespread environmental changes, e.g., increased nutrients, global warming, on decomposition in peat bogs. Furthermore, the results will have relevance for many raised bogs because the moss species used in this study occur throughout the northern hemisphere.